U.S.-Japan Cooperative Science: Virtual Collaborative World Simulator for Underwater Robots using Multi-Dimensional, Synthetic Environment

9603043 Yuh This award supports a three year collaborative research project between Professor Junku Yuh of the University of Hawaii in Manoa and Professor Tamaki Ura of the University of Tokyo in Japan. This project undertakes a study of a virtual collaborative world simulator for underwater robots using a multi-dimensional, synthetic environment. The major objective is to develop a virtual 3-dimensional, hybrid environment platform with a high-level control and information architecture. The major goals of the project are to l) enable remote sharing of underwater robotic resources; 2) enhance the remote monitoring and control of the robots from globally remote locations; and 3) enhance and stimulate the development of other areas such as underwater communication, sonar and acoustic sensors and underwater visualization. Successful planning of the robot operation requires integrated simulation of the actual robot with environmental data and operating conditions. The project brings together the efforts of two laboratories working on different aspects of autonomous under water vechicles: the American's have experience in developing a virtual reality platform and an underwater vehicle and the Japanese have developed the graphic platform, underwater vehicles and shallow water testing. Research and development of underwater robotic systems will be a low-cost key to better understanding marine and other environmental issues; to protect the earth's resources from pollution; and to efficiently utilize the vehicles for human welfare. The data gathered from the research project will provide information on the performance, effectiveness, interactiveness, and safety of an underwater vehicle and its environment. Through the exchange of ideas and technology, this project will broaden our base of basic knowledge and promote international understanding and cooperation. ***